Raptors: A National Traveling Exhibition and Education Program

The Science Museum of Minnesota (SMM) will develop an interdisciplinary national traveling exhibition about raptors (birds of prey). Created in collaboration with The Raptor Center at the University of Minnesota (TRC) and the Museum Magnet School of the St. Paul School District, this exhibit and its related programs will explore themes of biodiversity, ecology, and human relationships with the natural world. It will help visitors understand raptors as diverse, charismatic, biologically-complex animals whose continued survival is linked to fundamental questions of public policy, economics, and environmental ethics. combining the perspectives of the sciences with those of the humanities, the exhibit will present science in a real-world context of human values and actions. Opening at SMM in the summer of 1944, the 5,000-square-foot exhibit will travel for five years or more to other large museums, nature centers, and zoos throughout the U.S. Using specimens, models, artifacts, dioramas, audiovisual programs, and interactive components and supported by theater, demonstrations, and a variety of other on-site programs, it will provide a compelling mix of informal learning experiences for families, school groups, and other general audiences. Beyond the museum walls, the themes of the project will reach schools and other important outreach audiences through videotapes, teacher training programs, educational materials, and other programs. SMM will also produce a scaled-down version of the exhibit that will tour to smaller museums, nature centers, and zoos.